Computer Support for Real-time Programming Instruction

This project supports enhancement of this institution's computer science course in real-time and system level software development. Undergraduate students are exposed to a laboratory having dedicated machines (so that system level errors during software development do not disrupt other users) and high-level software development support and modern interfacing equipment so that practical projects can be carried out in the lab. The equipment supporting this lab includes; VME-bus based microcomputers with serial and parallel ports, floppy disk controller and drive and interrupt capabilities; debug monitor; and, cross-assembler. This award is being matched by an equal sum from the grantee.